Collaborative Research: Fullerene Aggregation in Aquatic Systems

0504546 Wiesner This collaborative proposal is to investigate fullerene-based nanomaterial aggregation. Recent results suggest that these materials may be toxic, and there is agreement that the environmental fate of nanomaterials should be investigated. This proposal will address some of these issues for the specific nanomaterial (fullerenes). The investigators will use a balanced approach of experimental work coupled with kinetic modeling.